The influence of electric fields in the fracture of Piezoceramics

This Research Initiation Award is to support the study of fracture of the very brittle piezoceramic materials. The main emphasis will be on effect of the electric field on the rate of crack propagation. The stress and electric displacement behavior near the crack tip will be south via the use of an eigenfunction expansion method.